Ionic, Atomic, and Molecular Physics

Professor Pritchard will continue his experimental program in atomic physics and metrology consisting of two parts: precision mass comparison of individual trapped ions, and experiments on cold, trapped atoms with an emphasis on cold collision dynamics.